Computational modeling of sequence-dependent DNA curvature using hydrodynamics

Gonzalez
0706951

The investigator develops a computational method for
estimating local, sequence-dependent curvature parameters for DNA
from hydrodynamic data on short, relatively stiff fragments. The
method consists of minimizing a least-squares functional which
quantifies the difference between theoretical and experimental
sedimentation speeds for a given collection of fragments, and its
numerical implementation requires the repeated solution of an
exterior Stokes-type problem around various slender,
three-dimensional domains. The research effort is centered on
three areas: (1) the study of the theoretical sedimentation speed
of a stiff polymer in a Stokes-type fluid with thermal
fluctuations in different asymptotic limits, (2) the design and
analysis of fast, provably convergent boundary element methods
for computing the theoretical sedimentation speed based on the
novel idea of a kernel-adapted Nystrom method, and (3) the design
and analysis of fast, reliable methods for minimizing a
least-squares sedimentation functional over a space of
sequence-dependent curvature parameters.

The sequence-dependent curvature and flexibility of DNA is
critical for its packaging into the cell, recognition by other
molecules, and conformational changes during biochemically
important processes. However, few experimental methods are
available for probing these properties at the basepair level.
The objective of this project is to exploit the stiffness of DNA
at short length scales and develop a method for estimating local,
sequence-dependent curvature parameters from hydrodynamic data on
short fragments. The method is based on the observation that
small, relatively stiff fragments of different shape typically
travel at different speeds when forced through a viscous fluid or
through a dilute gel. The investigator seeks to develop a
sufficiently refined mathematical relation between shape and
speed and further use this relation to develop a computational
method to estimate shape parameters from measurements of speed.
Results from this research lead to new tools for quantifying the
intrinsic sequence-dependent curvature of DNA, which in turn may
lead to an enhanced understanding of important genomic regions
and of how DNA interacts with other molecules.